Encounters: Radio Experiences in the North

This project will create a series of half hour radio programs that will educate audiences about the environment and traditions of the northern Polar Region. Each radio program will be recorded in the wilds of Alaska and northern Canada during close contact with nature providing a direct authentic experience. Cultural anthropologist and author, Dr. Richard Nelson will host the programs on topics such as wildlife, ecosystems, weather and climate, glaciology, communities and land, and indigenous traditions. Distributors of the programs include the Alaska Public Radio Network, the Australian Broadcasting Corporation, and inserts in NPR's Living on Earth.